Experiments in Quantum Dynamics

Key experiments are proposed for the advancement of quantum dynamics, the study of time evolution in systems described by quantum rather than classical mechanics. Both few and many body systems will be examined in real time. These include microwave driven highly excited hydrogen atoms, a search for a quantum breaktime in the evolution of a microwave driven ensemble of strontium atoms and an investigation into the gas-plasma phase transition in an overdense gas of Rydberg calcium atoms. These experiments will enhance our understanding of the relationship between the quantum theory of small systems and the nonlinear dynamics of classically macroscopic systems.